Doctoral Dissertation Research: An Ethnographic Study of Science, Industry, and Food Enhancement

This is an ethnographic study of the organic chemists and flavorists who develop, manufacture, and market synthetic flavorings. Research will involve twelve months of multi-sited fieldwork in the United States and include from participant observation and 20-35 in-depth qualitative interviews.

The research will result in a dissertation and trained professional. The findings should be of value to food scientists and the food industry.